Numerical Modeling Studies of Thunderstorm Charging and Lightning Influence on Storm Electricity in Two and Three Dimensions

The objective of this research is the physics of electrification of thunderstorms, including the lightning discharge, using a numerical cloud model. The formulation of riming charge transfer will be guided by recent laboratory results showing the significance of both temperature and liquid water content. Also, the significance of ice splintering in producing lower positive charge centers will also be investigated. Improvements in the lightning parameterization scheme will include a randomization of the propagation path based on the presence of random free electrons in the vicinity of the discharge tip, the inclusion of the tip electric field in the path calculation, and a simulation of the cloud-to-ground discharge. These improvements and those mentioned above will be incorporated in the three-dimensional model. We will include a calculation of the Maxwell current into our analysis software to test the inference of Krider and Musser (1982) concerning the role of inductive and noninductive processes in driving the Maxwell current. Modeling studies of several new cases will be undertaken with both 2D and 3D models to examine electrification processes in various storms.